Graph-Based Mobile-Code Representations for High-PerformancePortable Software

CCR-9901689
"Graph-Based Mobile-Code Representations for High-Performance Portable
Software"
Michael Franz

This project investigates machine-independent program representations
for mobile-code applications. Existing approaches have been based on
abstract machines: each program is encoded as a linear sequence of
"byte-codes" in the instruction set of the virtual machine. This
research instead focuses on hierarchical, graph-based formats that
are able to preserve the high-level semantics of the original source
program to a much higher degree than linear representations. This
becomes particularly important when dealing with explicit source-level
parallelism in high-performance software: transporting such programs
via a representation without hierarchical constructs implies
sequentialization when the source code is compiled, and possibly
a subsequent re-parallelization in the eventual native-code generator.
This is not only costly, but very likely to lead to a loss of
efficiency. Moreover, hierarchical encoding schemes promise to
directly and space-efficiently encode most of the control-flow
and data-flow information necessary for advanced code optimizations,
as well as provide for simpler verification of mobile-code security.
Lastly, preliminary evidence suggests that hierarchical solutions
scale better to large programs than solutions based on linear
byte-code streams for abstract machines.